New Earth Explorers: A Planning Grant

This planning grant is for developing a PBS television series focusing on dramatic but little-known geologic stories tied to world-famous cultural and historic sites in places such as Greece and Rome. The full project would consist of four broadcast television programs, an interactive web site, DVD's and outreach activities. The planning grant would support preparation of television program treatments, front end and formative evaluation, advisory committee meetings, development of an outreach plan and collaborations with partners. This project builds on previous NSF supported work (GEO-0331151).